NSF Young Investigator

ABSTRACT CTS-9457097 Daniel Schwartz The general objective of this effort is the correlation of molecular level processes with laboratory-scale processing variables in electrochemical systems. Molecular-level spectroscopic measurements are coupled to macroscopic transport and reaction processes. An in situ Raman or luminescent image provides a molecular-level "snapshot" of an electrochemical interface or boundary layer that can be resolved spatially with micrometer resolution. These imaging capabilities allow the study of processing-property relationships in a variety of electrolytic or electrodeposition systems, including conducting polymers, ferroalloys, and biological systems. They are especially useful when homogeneous chemistry in a reactive boundary layer is an important factor. They also permit the study of the coupling between redox reactions (homogeneous or heterogeneous) and transport processes. The processes studied represent the applications of electrochemical technology to modern "high-tech" devices, including advanced batteries, magnetic storage devices, fuel cells and space-age metals. They are also applicable to separation and decontamination procedures for chemicals, soils, and nuclear wastes. ***